RUI: Feeding and Foregut of Caprellid Amphipods (Crustacea)

Amphipods are crustaceans that have evolved a variety of feeding behavior. An analysis of caprellid amphipods is proposed to explore the relationships between body parts involved in feeding and digestion, and the feeding behavior of the animal. Data would come from two sources: videotaping appendage motion during filtering, scraping, scavenging and predation, and morphologic analysis of whole body, appendages and foregut with light and scanning microscopy. Data would be collected and analyzed using a microcomputer-based image analysis system. The proposed research would increase our understanding of crustacean biology and of how morphology and behavior are related in evolution. The research plan will serve as a model for the use of computer-based image analysis in functional morphology research, and will greatly enhance the undergraduate experience of two students working with Dr. Caine.